REU Site: To Continue an REU Site in Computer and Information Science and Engineering at Caltech

This is an award to continue an NSF-REU site in Computational and Information Sciences and Engineering at Caltech. Based upon the success of last years' program much enthusiasm has been expressed by the faculty and by the students. The 1989 program is aimed at encouraging 8 students to participate in a "player/coach" relationship with faculty who are interested in neural networks and parallel computing. Faculty contacts at other colleges will be used to encourage women and underrepresented minorities to participate. In addition to the research, other opportunities for professional and personal growth will be made available; these include "overview" seminars in other fields, informal lunches and talks with the math faculty, and social events. Students will be recruited from several of the 40 local colleges who have underrepresented minority students. Special efforts will be aimed at encouraging students from Historically Black Colleges and Universities to participate.